EAGER: Solar Aware Smart Grid at Biosphere 2

Intellectual Merit

Integrating large amounts of solar power into the existing electric grid is problematic because power is only produced during daylight hours, and can be interrupted by passing clouds. This intermittency leads to a mismatch between power production and power consumption, which limits the adoption of solar power by utility companies and large-scale power users who require a stable and reliable power source. Discovering new ways to compensate for intermittency will accelerate the adoption of solar power, will reduce CO2 emissions, and will improve national security by conserving non-renewable resources.

To accommodate intermittency, we will regulate industrial-scale electrical demands on a minute-by-minute basis in response to measured and forecasted solar power. We will conduct experiments at the Biosphere 2 in Arizona, where we will use measured and predicted output of 70 kW of solar PV modules present at the site to regulate the operation of two 75 HP (56kW) water pumps.
The water pumps transfer water from two wells into a 500,000 gallon reservoir. If the activity the water pumps is suitably regulated based on the power produced by the PV modules, the variability in the power production of the combined system (PV + Pumps) will be reduced compared to that of the PV modules alone. A great deal of theoretical work has been done in this field; the proposed project will provide much needed experimental data.

Broader Impacts

Findings from our experiments will inform large power users such as the University of Arizona, the city utility Tucson Water, and the Central Arizona Project (CAP) about cost-effective and safe ways to use more solar power. It will also enable industries to plan bigger solar farms without net-metering. The graduate and undergraduate students will benefit from the participation.